Mathematical Sciences: Estimation and Identification of Nonlinear Systems and Acausal Systems Theory

Professor Krener proposes to develop analytical methods to deal with nonlinear control systems governed by systems of ordinary differential equations. Three topics will be covered. The first topic is the nonlinear observation and filtering. Here, Professor Krener wants to study geometric, asymptotic and stochastic aspects of these problems. The second topic is the identification of nonlinear systems. A new approach, based on the normal forms for nonlinear systems, is proposed. The third topic is the stochastic realization of acausal systems. It has potential applications to signal-and image processing.